Symposium on "Advances in Structure Determination by by Diffraction and Related Methods"; ACS National Meeting; Dallas, TX; March 29-April 3, 1998

9732162 Clearfield Research in solid state and materials chemistry is undergoing tremendous growth while at the same time the character of the research is changing due in large part from the need to explore new classes of technologically important materials made possible by the advent of new solid state synthetic strategies. This meeting will bring together experts in the field of structure determination by diffraction and related techniques to inform a broad range of inorganic, solid state and materials chemists about the latest advances in these fields. %%% New materials classes of high technological importance are emerging at a rapid rate due in large part to the development of new solid state synthetic strategies. These include synthesis at low temperatures, "chemie douce" or soft chemistry, supramolecular assembly, crystal engineering, and new routes to hybrid inorganic-organic materials. These approaches have recently been used by industrial firms searching for new catalysts, semiconductors and superconductors. Complementary to these synthetic efforts, and an integral part of solid state chemistry is the development of powerful structure determining tools for the characterization of these new classes of materials. ***